Microvoltammetric Electrodes

This project, supported by the Analytical and Surface Chemistry Program, is directed at the study and application of electrogenerated chemiluminescence (ECL) reactions occurring at microelectrodes. Professor Wightman and his students at the University of North Carolina at Chapel Hill will investigate the use of ECL as a means of screening potential organic compounds as light emitting diodes (LEDs) in collaboration with Professor Neal Armstrong of the University of Arizona. Optical monitoring of luminescence-producing reactions will be undertaken to study the stochastic nature of the ECL process. These two studies set the stage for critical comparisons of the mechanisms of light production in LEDs and via ECL. ECL of Ru(bpy)3+2 immobilized at a microelectrode will be evaluated as a monitor of histamine secretion from cell walls. Finally, ECL occurring at a microelectrode is proposed as a new illumination source for near-field scanning optical microscopy (NSOM). The ability to monitor chemical processes in and about micrometer-sized electrodes has a large number of practical applications. Professor Wightman's laboratory is a leader in the theory and use of these devices. One of the most novel means of operating a microelectrode is as an initiator of reactions which produce light, termed electrogenerated chemiluminescence (ECL). The technique is being extended to the screening of potential organic molecules for use in light emitting diodes and as a means of detecting histamine secretion from biological cells. The use of ECL produced at microelectrodes may also be useful for optical microscopy. The work to be done by Professor Wightman and his students is likely to have impact in a wide range of technological areas.